Nutrient Technician Support: WHP lines P16S, P17S, P19S, and P19C

In this project, the PI will provide technician support and collect and analyze samples for standard nutrients on hydrographic sections for the World Ocean Circulation Experiment (WOCE). These sections are designated as WOCE lines P-16S, 17S, 19S and 19C, and cover much of the Southeastern Pacific Ocean.